Postdoctoral Research Associateship in Computational Molecular Design

9310236 Scott Recently, a parallel version of the algorithm has been developed but it has bot been tested on large, physical systems. We propose to carry out the implementation and testing of such algorithms. The proposed research will also include the examination of programming models appropriate for this type of scientific problem.